Naturally Nanostructured Epitaxial Semiconductors

9705440 Gibson This FRG/GOALI proposal addresses basic materials science and engineering issues in a collaborative program between the University of Illinois and Hewlett-Packard Laboratories to understand fundamental phenomena and interactions associated with naturally nanostructured epitaxial semiconductors. Goals of the project are to obtain semiconductor epitaxial nanostructures smaller than feasible via lithography, and to examine their applications to novel devices; strain-induced self organization and kinetically driven pattern formation are two approaches being taken to achieve naturally nanostructured materials. The joint activities include staff exchange with graduate students spending time at H-P, and with additional staff exchange between U. IL and H-P personnel. The proposed research emphasizes understanding of fundamental mechanisms and processes along with exploration of advanced device technology. %%% The project addresses forefront materials science research issues in a topical area of materials science having high technological relevance. The research will contribute basic materials science knowledge at a fundamental level to important aspects of electronic/photonic devices and integrated circuitry, in general. Additionally, the fundamental knowledge and understanding gained from the research is expected to contribute to improving the performance of advanced devices and circuits by providing a fundamental understanding and a basis for designing and producing improved materials and structures for the quantum mechanical devices of the future. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area, and with the benefit of teaming with industrial research staff, and exposure to industrial facilities, equipment and approaches. ***